VEESC: Virtual Execution Environments for Scientific Computing Workshop

Computer programming languages play a central role in scientific
productivity. They are the interface between domain experts and the
machine. The first generation of scientific languages were statically
compiled computer programming languages such as Fortran, C and C++.
Optimized for efficiency they stayed close to the hardware at the cost of
ease of use. The languages of choice for scientists are increasingly
dynamic ones like Perl, Python, R, Matlab, Mathematica, Maple, and
JavaScript. Educational material in Bioinformatics, for example, includes
many textbooks for Perl, Python and R and none for C, C++ or Fortran. But
the application of cutting-edge scientific methodology is limited by the
capabilities of the system in which it is implemented. While dynamic
languages start out as glue for native libraries, with time, more and more
of the actual computations is expressed in those languages. But quickly
users experience limitations of these languages: performance is not adequate
for compute intensive tasks, space overheads preclude manipulating large
datasets, and information security and reproducibility of results must be
addressed.

This workshop explores the need for a Scientific Software
Innovation Institute (S2I2) centered around Virtual Execution Infrastructures
for Next Generation Scientific Programming Languages. There is a need
to develop expertise and momentum to encourage development of open source
high-performance implementations of productivity-oriented scientific
programming languages. To this end, the VEESC workshop brings together
experts in virtual machines and compilers, designers and implementors of
high-level dynamic languages and related systems, and key representatives
from end-user communities in the sciences.